Ocean Circulation Models Based upon the Lattice Boltzmann Method

Salmon
OCE-100868

Lattice-Boltzmann techniques are simple, stable, and conducive to massive parallelization, but 'inflexible'. With effort, they can be made more flexible. The PI proposes to continue his efforts in this regard. He has developed a square, flat-bottomed ocean model using the shallow water equations and the quasi-geostrophic equations. He will derive the formulae for a Lattice-Boltzmann primitive equation model on spherical coordinates. He will also develop balanced versions of the Lattice-Boltzmann model.